Community Ambassadors in Science Exploration (CASE)

Community Ambassadors in Science Exploration (CASE) is a new model for encouraging the appreciation and understanding of science among underserved families through: a corps of teen and adult peer presenters; a curriculum of hands-on learning experiences for families of diverse ages and backgrounds; a regional network of museum-community collaboration; integration of community and museum resources through joint programming; and a longitudinal research study of program impacts. CASE will serve over 20,000 people over three years with peer-presented family learning opportunities and museum experiences. In addition, CASE will train a total of 108 science ambassadors who will offer science workshops at community-based organizations in the languages spoken by their constituencies. Through CASE, the ambassadors will gain training and experience in informal science education that can open the door to possible future career opportunities in community and museum settings. Building on a ten-year history of museum-community collaboration, CASE will be conducted by PISEC, the Philadelphia/Camden Informal Science Education Collaborative. PISEC includes four major Philadelphia informal science institutions: The Franklin Institute, the Philadelphia Zoo, The Academy of Natural Sciences and The New Jersey State Aquarium. This organization conducts research and outreach projects in support of family science learning.